Mathematical Sciences: Symplectic Topology, April 9-11, 1992; Fayetteville, AR

The subject of symplectic topology goes back to Poincare's work on celestial mechanics. The first result in this area was the so-called "Poincare's geometric theorem," proved some twenty years later. Recent progress in symplectic topology started in the early 1980's with proofs of some of Arnold's conjectures which had remained unresolved for twenty years. Major developments have occurred in the last several years; modern symplectic topology is intimately linked with Morse theory of functionals unbounded from above and below, the theory of pseudo- holomorphic curves in almost-complex manifolds, the theory of instantons, low-dimensional topology and knot theory. This project will support the Conference on Symplectic Topology to be held from April 9-11, 1992 at the University of Arkansas, Fayetteville. The conference will focus on recent developments and will represent different approaches to the problems of symplectic topology and provide an opportunity to exchange ideas on unresolved problems.